Collaborative Research: Laplacian-Centered Poisson Solvers and Multilevel Summation Algorithms

Solvent interactions play a critical role in determining the structure and
function of biomolecular systems. However, accurate modeling is a challenging
task due to long-range correlations and vast numbers of solvent atoms and ions.
For very large systems, one method for reducing this expense is the application
of an implicit solvent model which replaces the explicit atoms and ions with a
dielectric continuum. One of the more accurate implicit solvent models is
described by a generalized Poisson equation or Poisson-Boltzmann equation with
point charge source terms. Although the generalized Poisson approach is
considered in very many cases to be sufficiently accurate, most current methods
for approximating its solution have been deemed prohibitively expensive for
very large systems and for applications requiring rapid repetitive evaluation.

This project centers on the creation and analysis of algorithms of unsurpassed
effectiveness for approximating the solution to the generalized Poisson
equation (GPE) and its extensions. The approach involves solving for an
"effective charge distribution" given by the Laplacian of the solution
to the GPE. The corresponding electrostatic potential can be recovered using
a fast N-body solver. Broader impact of this project will be realized through
the incorporation of novel algorithms in simulation software. Better methods
and software in the hands of scientists will enable biomolecular simulation of
much larger systems with improved accuracy which will result in contributions
to society. In addition, this project provides an opportunity for a graduate
student to engage in research that spans computer science, physical science,
and mathematics.